Reactions of Polarized Gamma Rays on Polarized HD Targets

This NSF project seeks to make measurements of nucleon structure
using polarized gamma rays and polarized nucleons. The polarized
gamma rays are created at LEGS by back scattering polarized laser
light from the high energy electrons circulating in the storage ring
of the National Synchrotron Light Source at Brookhaven National
Laboratory. In back scattering the polarization is unchanged. By
detecting the scattered electron, the gamma ray energy is "tagged",
and measurements at all energies can be made simultaneously. The
polarized nucleons come from producing targets of frozen HD in a
high magnetic field. Polarized H, D or both can be produced in
targets of a size suitable for nuclear physics experiments and with
relaxation times of two weeks in the case of H and longer for D.

These double polarization experiments allow measurements of
pion-photo-production amplitudes that have not been previously
measured. Such are important to completely describe the
gamma-nucleon interaction. The difference in the absorption cross
sections for gamma and nucleon spins parallel and anti-parallel are
sensitive to the spin structure of the nucleon. We will be able to
test the major part of the Gerasimov-Drell-Hearn Sum Rule and make
direct determinations of nucleon spin polarizabilities. Due to the
large energy range required to test the sum rule no single
laboratory can accomplish the task. However, as the gamma energies
in the LEGS case range from photo-production threshold to beyond the
delta resonance, the major region of sensitivity is covered.